Redox Properties and Iron Storage Capability of Mammalian Ferritin

Iron is an important element in the physiology of living organisms. Nature has elaborated an elegant system for modulating and controlling the balance between iron insufficiency and iron toxicity by developing the protein molecule ferritin. This protein is similar in form and function in species ranging from bacteria to mammals. Its basic function seems to be that of storing iron during growth cycles when this element is abundant and distributing it controllably during metabolic demand. With both the structure of the protein shell and the various protein interactions known in detail and the structure and composition of the mineral core likewise quite well understood, the stage is now set for a detailed examination of the mechanism for iron release and deposition in ferritin. The specific aims of the project are to prepare and characterize specific redox states of ferritin which represent intermediates in the process of iron deposition or mobilization. Electrochemical, biochemical, magnetic and spectroscopic methods will be used to carryout the planned experiments. The Program recommends support for this collaborative project.